Computerization of the Florida Museum of Natural History Malacology Collection

This project will complete the computerization of the Florida Museum of Natural History mollusc collection by 1996. This collection has international importance to the malacological studies and the FLMNH is a leading center for malacology research. Computerization and curation of this collection will enhance its use in biodiversity studies, systematic and ecological research and conservation efforts.